Weak and Electromagnetic Radiative Corrections in Atomic Physics

Radiative corrections have played a central role in the development of theoretical
physics since the original successes of Quantum Electrodynamics (QED) in the late
1940's. Their calculation in atoms and ions is technically challenging because of the
complexity of the electron propagator in bound states. Two theoretical tools will
be used in this project to attack this problem. The first, S-matrix theory, is most
applicable to highly charged ions. QED effects are highly enhanced in these ions,
and recent advances in experiment provide a wealth of data sensitive to this physics.
S-matrix theory can be used to systematically calculate radiative corrections in these
ions, provide tests of QED, and possibly uncover new physics through the comparison
of theory and experiment. The existence of an expansion parameter, 1/Z, leads to
the simplification of having to deal with a limited set of Feynman diagrams. A major
part of this work involves the calculation of these diagrams, which should allow
the above-mentioned tests.

In neutral atoms the 1/Z expansion parameter is not available, and precision tests
are much more difficult. A major development of recent years has been the application
of non-relativistic QED (NRQED) to few-electron systems. This technique allows one
to start with the Schroedinger equation, which can be solved with high accuracy for
few-electron atoms. NRQED provides a systematic method to account for relativistic
and QED corrections. Another major component of the proposed research is applica-
tion of this method to the fine structure of helium, where comparison of sufficiently
advanced theory with already existent experiments should allow a determination of
the fine structure constant with high accuracy.

Finally, the evaluation of radiative corrections to parity nonconserving (PNC)
processes in heavy neutral atoms is proposed. The earliest particle physics evaluations
of this radiative correction, which involved free propagators, are significantly changed
when bound propagators are used. A full calculation has not yet been carried out,
but work carried out under the previous grant should be generalizable to this complex
task, which has important particle physics implications.